A Workshop on Electrochemical, Thermal, and Modeling Studies of Li-Ion Cells and Batteries, November 1999, Chicago, Illinois

A workshop on electrochemical, thermal, and modeling studies of lithium-ion cells will be held at the Illinois Institute of Technology in early November, 1999. These batteries are used in many portable information technology devices. They are currently used in laptop computers and cell phones. In addition to thermodynamic, thermal, and electrochemical issues, understanding at the molecular level will be discussed. This workshop will bring together specialists who are involved in experimental and computational research. The workshop will attempt to integrate the approaches of computational researchers with those of experimentalists to facilitate breakthrough research in the area of novel electrode materials, electrochemical performance, and safety of lithium-ion cells from a fundamental viewpoint.